SSC: "Meadowcreek Science Institute"

The Meadowcreek Science Institute is a four week residential science program for minority students from throughout Arkansas who are entering the seventh, eight or ninth grades. A total of 50 different students who have an interest or aptitude in science, engineering or mathematics (SEM) will participate in each year of the three year program. The primary goal of this initiative is to encourage underrepresented minority students from Arkansas to pursue secondary and university level studies and subsequent careers in science, engineering and mathematics. Students will explore energy, physics, mathematics, chemistry. geology. hydrology, biology, ecology, horticulture and environmental science thrmugh active participation in a diverse natural setting. Students will take part in scientific, hands-on, and interactive activities while in residence at Meadowcreek's 1500 acre outdoor classroom which includes an 18,000 square foot solar powered education center. Students will experience the excitement of scientific discovery as they study biology by the side of a stream or sample beneficial insects as part of a mathematics activity. The program is designed to make the sciences relevant while developing communication skills and cooperative approaches to problem solving. The Meadowcreek Science Institute will inspire students to reach beyond self-imposed limitations through interactions with teaching assistants, mentors and other role models. Field trips will enable students to see science in action, while exposing students to professionals in a variety of scientific fields. The program collaborates with the Arkansas Statewide Systemic Initiative, Arkansas Science Crusade, Arkansas STRIVE, Teachers of Tomorrow and the Arkansas Educational Cooperatives. Student progress will be carefully tracked and mentors will maintain contact and continuity with students throughout the year. A program advisory committee will monitor the entire program as well as follow-up and ev aluation activities. ***